Mathematical Sciences: Computing Science and Statistics; Symposium on the Interface Theme; Research Triangle Park, N.C.; June 15-18, 1994

9400023 Sall The Interface Conference was designed to bring together professionals from different fields that share a need for better statistical computing methods. Originally focused on the interface with numerical analysis and computer science, in more recent years it has been involved with a broad range of scientific and technical areas, particularly hot areas such as biotechnology and quality engineering. Computing is currently a very active area in the statistics profession as desktop computing power has made a huge advance in the last 5 years. For example, Bayesian statistics used to be mostly theory and little practice, because it was saddled with difficult numerical integration issues. Today, the emergence of Monte Carlo methods coupled with fast machines has made the techniques suddenly practical. Researchers are asking for the distribution of estimates, rather than just approximate standard errors, and a number of resampling-based methods have emerged to provide those answers. Exact significance levels are replacing approximate ones. Smooth curves are replacing straight line fits. Statistical graphics is helping researchers make discoveries. The Interface Conference will have the specialized sessions on the state-of-the-art, and also a number of tutorial sessions and short courses to help bring the new technology to a general technical audience. The Interface conference is the one annual conference dedicated to statistical computing issues. Statistical computing has emerged as a particularly important field in the last few years because the arrival of cheap and fast desktop computers has opened up a lot of new opportunities that were only dreamed of a few years ago. A generation ago, the best statisticians could do with limited computing resources was to get a statistic if the data was organized a certain way, and look that statistic up in a table. Then computing and numerical techniques improved enough to handle more general models and get significance levels. Now we have progressed to where we can analyze very general models that require fewer assumptions, have a more flexible functional form, provide details on the distribution of the estimates in the model, use interactive exploratory techniques to make new discoveries, and present the results with graphical visualization techniques. With further refinements in statistical computing tools, the statistical community has a chance to really serve the scientific and technical world much better at a time when the Quality Movement, the Biotechnology Revolution, and the Environmental mandate has made statistics and experimentation more critically important. The Interface conference provides the forum for presentation and discussion of the latest breakthroughs in statisical computing.